RUI: Mechanistic Probes of (Phospho) ribosyl Group Transfer

The synthesis and characterization of non-hydrolyzable C-glycoside analogs of 5-phoshorylribose 1 .-diphosphate (PRPP) determined that they are competent competitive inhibitors of orotate phosphoribosyltransferase (PRTase) and that they cannot serve as substrates. This allows the use of these compounds to assess the thermodynamics of ternary complex formation in the PRTases, previously an untenable experiment because no analogs were available that could resist cleavage at the anomeric carbon. This proposal also involves preparation of another novel 3,5 cyclic phosphate analog of PRPP in order to test the hypothesis that yeast orotate PRTase changes its mechanism by swinging the 5-phosphate over or away from the 1-carbon of PRPP. This presumed "change in mechanism" can also be investigated by inversion transfer experiments using 31P NMR; these proposed studies would characterize the dynamics between PRPP and PPi (or PRPCP and methylene bisphosphonate) in the first "half reaction" of orotate PRTase that might bind a 5-phosphorylribose oxocarbocation intermediate. The apparent "change in mechanism" may result from a competition in rate between the release of PPi and binding or orotate; this possibility will be studied. Also included is the evaluation of the likely role of the putative oxocarbocation intermediate by testing various analogs, (derivatives of O-phosphorylprolinol) of the intermediate on the enzyme. These studies should shed light on the general mechanism of nucleotide synthesis.